International Conference on Mathematics in Biology

The investigators organize an international conference on
mathematics in biology. The theme of the conference is
"Interdisciplinary Connections and Living Systems." The goals of
the meeting are to highlight current top-level research, to
provide a perspective on future research areas, to provide
opportunities for career development to junior researchers, and
to foster interactions between established researchers and junior
researchers. The conference is linked with a short course on the
mathematics of biological complexity designed for biologists, in
order to provide opportunities as well for new collaborations to
develop between empirical researchers and theoreticians.
Quantitative approaches are becoming central to all
components of research in the life sciences. With the rapid
expansion of bioinformatics, computational biology, and
proteomics, the underlying mathematical approaches that are
essential to these fields are recognized as critical to further
developments. Applications of mathematics to many areas that
directly affect humans allows us to better evaluate the impacts
of alternative management of natural systems, develop new
techniques useful in biotechnology, and design more appropriate
responses to health problems. The rapid developments in these
areas require opportunities in particular for young researchers
to gain perspective on the broad range of subjects that now
define mathematical biology. The conference provides a method to
carry this out as well as allowing younger researchers to
participate in a formal mentoring program designed to enhance
their ability to pursue a successful scientific career.